Mixed/Hybrid Plate and Shell Elements

This award is made to develop new shell finite elements which can be used in a wider variety of problems than existing ones. The new elements should avoid artificial locking mechanisms, incorporate nonlinear elasticity, permit large rotations and some types of inelastic material behavior.